STTR Phase I: Development of a Lead Optimization Chip for Drug Discovery

This Small Business Technology Transfer (STTR) Phase I research project aims to develop a new method for generating lead compounds by using enzymatic modification of compound sets.

Availability of new methodology to generate biologically active compounds from existing molecules may enhance the success of the drug discovery process and may lead to the discovery of new and useful therapeutics.